ROW: Physical Properties of Ferrofluids

9305478 Luo This is a Research Planning Grant that will allow the principal investigator to attend meetings and participate in other activities that will facilitate the preparation of a full proposal in the area of ferrofluids. On particular interest are the properties of frozen ferrofluids, which are interesting random magnet systems. %%% This is a Research Planning Grant that will allow the principal investigator to attend meetings and participate in other activities that will facilitate the preparation of a full proposal in the area of ferrofluids. Ferrofluids are colloidal suspensions of magnetic particles which are of great interest both fundamentally and technologically. They are used in magnetic clutches and can also serve as friction reduction and cooling media in loudspeaker coils. ***